Vertebrate Paleontology at Olduvai Gorge, Tanzania

Fossils provide the fundamental evidence of human evolution. Olduvai Gorge in Tanzania is one of the most fossiliferous and important sites for vertebrate paleontology and human evolution in East Africa. Much of the past and current research conducted at this site focuses on the stone tools and modification of bones found in excavations. This project differs from that and benefits science by focusing on the paleontology thereby contributing to knowledge of both the skeletal biology of human ancestors that lived in this region across the last two million years. In addition, the project focuses on collecting and identifying animals that are not recovered in human accumulated excavations, and as such adds information about the communities of animals that shared the landscape with them. With NSF funding the researchers are conducting three field seasons focused on recovering fossils. The field approach follows a highly systematic survey and collection protocol, and includes mapping of fossils and landscape features with high resolution satellite imagery. The second research component of the project is the compilation of a database of all of the fossils collected to date from Olduvai Gorge. This site was first discovered by scientists in 1911 and fossils have subsequently been dispersed to various collections around the world with no central database. The database significantly improves the ability of other scientists to access these collections, and enables the Tanzanian government to care for this world heritage collection.

This project also includes workshops for K-12 teachers in Arusha, Tanzania. These are coordinated with the successful K-12 workshops run by the University of California's Museum of Paleontology, opening up cross-cultural opportunities for teachers in California as well as in Tanzania. The research also provides international collaboration and training of graduate students.